Development and Maintenance of Synthetic Liver Tissue

The PIs propose to culture mixtures of three types of liver cells in a bioreactor in such a way that these cells can be used to produce immunomodulators (interleukins 1 and 6) and major histocompatibilty complex (MHC) glycoproteins (cell surface antigens responsible for histocompatibility reactions). Specific objectives of the study are to: - Purify three cell types by mechanical disaggregation and rapid fractionation. - Reassemble the three differentiated cell types and attach to appropriate support surfaces. - Maintain the cells in a productive mode for extended periods in small experimental rotating batch reactors. - Induce specific proteins and secrete these into the cells' serum free nutrient bath. The proposed work is highly innovative, and successful achievement of the objectives of this proposal will provide a significant advance to the culturing of mixtures of mammalian cells. It will also provide the basis for a more extensive research proposal. An interdisciplinary team of four experienced researchers will be involved in carrying out the project. This team includes a chemical engineer, a civil engineer, an immunochemist and a microbiologist.